Interactive Website for Distributing Data from the Policy Agendas Project

This project makes a new, large data set readily available to the research community. These data delineate policy items that have come before the national policy agenda since the Second World War. These data are made available through a scripted Website. These data are available through a flexible system that allows customizable and linkable subsets of the data. This prototype Website for the dissemination of complex, non-hierarchical data enhances the ability of scholars and teachers to understand and test ways in which policy issues reach (and fail to reach) the national policy agenda.